SBIR Phase I: Rapid Soil Nitrate Sensor

This Small Business Innovation Research (SBIR) Phase I project proposes the development of a rapid soil nitrate measurement system. Currently, effective fertilizer management is often limited by the lack of accurate soil nutrient data, which in turn is limited by the time and cost of soil sampling and analysis. In particular, nitrogen is one of the most critical nutrients for a large number of crops, but the difficulty in accurately and quickly measuring local soil nitrate-nitrogen has hampered the efficient management of nitrogen based fertilizers. A robust, economical, and fast soil nitrate measurement system thus has the potential to significantly increase agricultural nitrogen use efficiency. The objective of this proposal is the development of a rapid nitrate soil sensor utilizing the optical detection of nitrate-nitrogen in soil. The feasibility of directly measuring soil nitrate-nitrogen (without reagents) in soil-extractant mixtures will be determined, and appropriate methods for removing interferences from the soil background will be developed. This feasibility study will form the initial step in developing a field-deployable soil nitrate analysis system.

The broader impact/commercial potential of this project lies in allowing growers to rapidly and economically measure soil nitrate-nitrogen levels, thus enabling them to improve their fertilizer management decisions. For example, split application of nitrogen (through sidedressing) is known to greatly improve nitrogen use efficiency. However, sidedressing is very time sensitive, and management decisions of how much nitrogen to apply are often limited by the cost and slow turnaround of current soil testing procedures. Additionally, it is anticipated that the development of a rapid soil nitrate measurement tool will facilitate the improvement of current fertilizer prescriptions by providing researchers with a valuable tool for field studies. The development of a rapid soil nitrate measurement tool thus offers the opportunity to greatly increase fertilizer use efficiency. Fertilizer is a significant agricultural cost (over $18 B was spent in the U.S. on fertilizer in 2007) and the inefficient use of fertilizer has large additional societal and environmental costs: nitrous oxide arising from nitrogen-based fertilizer use causes between 4%-9% of the driving force for global warming, and nitrogen runoff from agriculture causes serious water quality issues, both locally and nationally. Thus improving fertilizer management will have large economic and environmental benefits.